Workshop on Computational Sciences, Mathematics, and Engineering

A "Workshop on Computational Sciences, Mathematics, and Engineering" is planned for the fall of 2002. The purpose of the workshop is to develop a planning document for future research directions and resources needed to advance the solution of a limited number of significant problems of national interest. These "core problems," which will be selected by the workshop participants, will provide a focus to define the generic issues of a computational science discipline. The core problems will be addressed through collaborations among application scientists, mathematicians, statisticians, and computer scientists. A workshop report will be produced and disseminated that will summarize the discussion and conclusions of the workshop. A web site is planned as part of the effort.